Particle Production and Detector Development in Colliding Beam Experiments

This grant will continue to support three professors, four graduate students and a junior postdoctoral fellow in studies of particle anti particle collisions in two experiments. In the first, proton and anti proton collisions are produced at the Fermilab collider and, in the second, electron anti electron collisions at the LEP accelerator at CERN in Geneva, Switzerland. In both cases, the collisions are at the highest energies available anywhere in the World, and make possible the deepest penetrations of the particles within one another. This allows the minutest details of particle interiors to be studied. These may either conform to the expectations of the "standard model," which accounts for most hitherto observed data, or may reveal further, unexpected phenomena beyond the scope of this model.